Experiments in a Directional Wave Basin: Wavemaker Theory and Wave-Induced Currents

A directional wave basin has been constructed with NSF support. This project is to further the development of the basin and to sponsor research in three major areas: three-dimensional wavemaker theory, video data acquisition the generation of nearshore currents, which are responsible for the transport of sand in the nearshore zone.